Experiments with Dipole and Monopole Lenses for an SEM

It is well known that it is highly desirable to operate scanning electron microscopes at low voltages such as 1 kV. This is due to the fact that at low voltages penetration of the incident electrons into the specimen is small and any specimen damage is restricted to the surface layer. However, the use of low voltages reduces the available resolution due to chromatic aberration effects. The only practical way to avoid this problem is to use lenses of very short focal length, but with a lens of conventional design this is not feasible. This proposal will support continuing development of a prototype microscope in which the lens of new design has been placed below the specimen. This makes lenses of very short focal lengths feasible. Theoretically this development should improve the resolving power of the microscope two, or even three, times over any instrument that is currently available. The funds requested in this proposal will be used both to refine the prototype microscope and demonstrate its usefulness using well-characterized biological specimens.